Presidential Young Investigator Award

The field of artificial intelligence and expert systems is in the embryonic stages of development in transportation research. This project will investigate the potential of expert systems with applications to pavement engineering type problems.